Conference: 2023 Spin Dynamics in Nanostructures GRC and GRS

This proposal seeks to partially support of participation of graduate students and post-doctoral researchers in the Gordon Research Conference (GRC) and the associated Gordon Research Seminar (GRS) on Spin Dynamics in Nanostructures. The GRS and the GRC will be held in Les Diablerets, Switzerland, during July 8th-9th 2023 and July 9th-14th 2023.